Collaborative Research: Investigating STEM Teacher Preparation and Rural Teacher Persistence and Retention

The project aims to serve the national need of addressing STEM teacher shortages in rural communities. Staffing schools with high quality STEM teachers has been a persistent challenge for rural schools for the past century, however, to date, relatively few resources have been allocated toward the improvement of teacher education to prepare teachers to work in rural settings. Addressing STEM teacher workforce needs in rural America is critical for future student success. This project aims to address STEM teacher workforce challenges through a focus on how educator preparation programs (EPPs) address the unique contexts of rurality and teaching STEM in rural settings. Moreover, it seeks to identify the programmatic features of educator preparation programs that support rural STEM teacher recruitment, retention, and persistence.

This project, led by Mississippi State University with thirteen collaborative partners (Texas A&M University, Stephen F. Austin University, University of Wisconsin River Falls, Fort Hayes State University, Clarkson University, University of Kentucky, University of Alabama Birmingham, Texas Tech University, Morehead State University, Texas A&M University- Commerce, Winthrop University, Alabama A&M University, and North Dakota State University) has three main goals. First is to investigate the impact of EPP features on program completers’ intention to teach as well as their persistence (continuing to teach at the same school) and retention (continuing to teach but at a new school) in rural STEM classrooms. Second is to engage in deep reflection leading to programmatic adjustments within collaborating partners’ educator preparation programs intended to increase equitable access to effective instruction for rural schools. Third is to share emerging knowledge about programmatic features of EPPs that support program completers’ intention to teach, their employment decisions after completing the EPP, and their persistence and retention in rural placements. The overarching hypothesis guiding this study is that EPPs that explicitly address rurality through programmatic features including context (e.g., addressing the strengths and challenges of rural teaching and stereotypes about rural places), curriculum (e.g., a focus on place-based instruction and rural field experiences), and conveyance (e.g., recruiting from rural or online delivery) will support recruitment, retention, and persistence in rural schools, which can lead to a more diverse and effective STEM teaching force for rural schools. Research is needed to understand the impact of these programmatic features in order to guide the design and delivery of educator preparation programs that serve rural schools and communities. This foundational research project uses a longitudinal, repeated-measures, mixed-methods research design in which 14 collaborating partners across the U.S. will identify programmatic features that address rurality and track program completers’ intentions to teach, persistence, and retention and thus produce evidence that will be disseminated both internally (to collaborating partners) and to broader audiences (e.g., STEM education, teacher education, and rural education communities). Data sources include curricular artifacts such as degree plans, course syllabi, field placement data, and assessment data; interviews with program faculty; and two surveys to capture demographic data, employment data, and the three outcome variables over time. The broader impact aim of this collaborative research is to create actionable knowledge to support rural STEM teacher persistence and retention. This Track 4: Noyce Research project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the persistence, retention, and effectiveness of K-12 STEM teachers in high-need school districts.